An Interface-Engineered Si3N4 for Optimum Wear Resistance

Under an SGER award an attempt will be made to produce polycrystalline silicon nitride compacts with grain boundary material which has been engineered to produce compressive stresses during cooling from the sintering temperature. It is expected that the resultant material will have improved wear resistance. The approach involves coating of submicron powders in solution, followed by calcination to form a thin, uniform layer of SiAlON which will become the grain boundary material in solid components compacted from the powder.